Collaborative Research: Applications of Gaseous Bose-Einstein Condensates in Quantum-Computational Devices

This research effort involves a collaboration among Mark Edwards of Georgia Southern University (GSU), Charles Clark of the University of Maryland, College Park and the National Institute of Standards and Technology (UMCP/NIST), and Keith Burnett of Oxford University. Important topics to be investigated include patterned loading of optical lattices and their subsequent evolution, Superfluid and Mott-insulator state properties of quantum gases confined in optical lattices at finite temperature, modeling of the operation of condensates suspended above atom chips of various designs, and careful study of the decoherence properties of such devices.